U.S.-Hungary Research on Regulation of Membrane Fluidity

The primary objective of this U.S.-Hungary cooperative research project between Dr. Guy A. Thompson of the University of Texas, Austin, and Dr. Laszlo Vigh of the Biological Research Center in Szeged, Hungary, is to study the biochemical regulation of membrane fluidity. By using homogeneous hydrogenation catalysts to change membrane lipid composition, the researchers hope to determine and analyze the effect desaturation has on membrane permeability and capacity for signal transduction. Results should contribute to our basic understanding of both plant and animal cell physiology, particularly the mechanism for chilling resistance and high temperature stress response. This project in biochemistry fulfills the program objective of advancing scientific knowledge by enabling experts in the United States and Eastern Europe to combine complementary talents and share research resources in areas of strong mutual interest and competence.